Determining the Role of Non-Coding DNA in Regulating Eukaryotic Cell Size and Physiology

Genome size varies dramatically across eukaryotic organisms, yet the reasons for this variation remain poorly understood. Much of this variation comes from differences in non-coding DNA, sometimes referred to as “junk DNA,” which does not encode proteins but can make up the majority of many eukaryotic genomes. A long-standing observation is that cells with larger genomes tend to be larger, suggesting that non-coding DNA may influence cell physiology. However, it has remained unclear whether non-coding DNA is mostly tolerated as excess genetic material or whether it has direct effects on how cells grow and divide. This project addresses this fundamental question by using budding yeast as a model system in which large amounts of non-coding human DNA can be added to the genome in a controlled manner. The work will advance understanding of genome evolution, cell growth, and cell size control. This better understanding of cellular growth and biosynthesis has relevance to biotechnology because engineered cells are widely used to produce proteins, chemicals, and other useful biomolecules. The project will also support training in quantitative cell biology, including opportunities for undergraduate researchers from non-R1 institutions, and will contribute to community-building activities through scientific meetings and an international online seminar series focused on cell size and growth.

The investigators have generated a series of yeast strains carrying increasing amounts of non-coding DNA integrated into their chromosomes, up to an amount that approximately doubles the native yeast genome. These strains provide a unique experimental system to determine how non-coding DNA affects cell physiology while leaving the endogenous protein-coding genome unchanged. Preliminary data show that added non-coding DNA slows cell growth and increases cell size, and suggest that this occurs because the added DNA recruits RNA polymerase II and thereby reduces transcription from endogenous yeast genes. The project will test this model by comparing independent non-coding DNA inserts, measuring RNA polymerase II occupancy and chromatin association, quantifying mRNA abundance, perturbing RNA polymerase II levels, and developing a predictive mathematical model linking genome size, transcription, and growth. The project will also examine how increased non-coding DNA delays the G1/S transition of the cell cycle to produce larger cells. Together, these experiments will establish a quantitative framework for understanding how a non-coding DNA burden affects eukaryotic cell growth and size.